Acquisition of a Departmental Solid State Nuclear Magnetic Resonance Spectrometer for Organic Geochemistry, Experimental Petrology, and Mineral Physics

9724317 Cody This grant, made through the Major Research Instrumentation (MRI) Program, provides $225,828 as partial support of the costs of acquiring a solid state nuclear magnetic resonance (NMR) spectrometer to characterize chemical structures in studies of organic geochemistry, experimental petrology and mineral physics. The use of this NMR spectrometer will be strongly multidisciplinary including organic geochemical characterization of the macromolecular products of diagenetic reactions in sediments, studies of major element speciation in volcanic glasses and studies of the distribution of hydrogen in hydrous magnesium silicates. Many of the proposed studies require the use of solid state NMR as many samples require bulk spectral analysis given that laboratory chemical separation techniques for many organic and organic-inorganic compounds are often very difficult and time consuming or can bias the in situ structural conditions of the compound. Additionally, the collaboration of organic geochemists with petrologists and mineral physicists with widely ranging backgrounds and ages using a state-of-the-art solid state NMR spectrometer brings great potential for new insights into the complex structural geochemistry of organic, inorganic and organic-inorganic compounds that have direct relevance to fundamental Earth processes. ***